Berkeley Particle Data Center

This proposal requests support for the Berkeley Particle Data Center. This center is a valuable resource for particle physicists, educators and students. It is the headquarters of the international Particle Data Group whose primary task is to provide particle physicists with up-to-date compiled and evaluated particle-properties data, reviews and other information they most frequently need. This information is made available to about 28,000 researchers, teachers and students thru the biennial publication of the "Review of Particle Physics" and the "Particle Physics Booklet" and through the annual publication on the World Wide Web. The Center an its collaborators also produce the compilations "Current Experiments in Particle Physics" and "Guide to Experimental Particle Physics Literature". The Center provides World Wide Web access to the information in its publications and databases.